Marine Geological Samples Collection: Lamont-Doherty Geological Observatory

The core and dredge collections of Lamont-Doherty Geological Observatory will be maintained, samples distributed, and data provided to the NOAA National Geophysical Data Center. The core/dredge repository provides a valuable source of marine seafloor samples for use by national and international scientists.